Interactive Experiences Introducing Polymer Science

9904193
NICHOLS

Inventure Place will present "Interactive Experiences Introducing Polymer Science." This planning grant will enable Inventure Place and its partner, the College of Polymer Science and Engineering at the University of Akron, to conduct audience research and prototyping and resolve design issues for the development of an integrated program of permanent and traveling interactive exhibits, learning labs, and educational activities introducing families and students to polymer science. Through accessible experiences, Inventure Place will introduce some basic concepts in the physical sciences, raise "polymer literacy", and introduce related careers.